Multi-scale analysis of field behavior inside heterogeneous media for local and nonlocal continuum theories

Lipton
DMS-0807265

The investigator develops new mathematical and computational
tools for the quantitative description of multi-scale phenomena
seen in composite structures. The effort focuses on properties
related to failure initiation. Failure is often precipitated by
extreme excursions of the local fields at the level of the
microgometry. Three projects are carried out that seek to make
new connections between the excursions of local deformation,
strain, and stress fields as functions of applied boundary loads
and initial conditions. The first project examines load transfer
between length scales for hierarchical structures when the
substructure is known only in a statistical sense. The goal is
to provide new variational tools for teasing out relationships
that connect the local field response to the applied long
wavelength loads. The objective is to use these relationships to
discover explicit criteria on the applied loads that are
necessary for failure initiation inside composite media. The
second project seeks to understand how field fluctuations inside
heterogeneous media depend on the boundary data in the presence
of residual stress. The goals of this project are to: i)
quantify the roles of boundary data, microgeometry and residual
stress on the penetration of high stress zones inside
statistically defined media and ii) understand the effect of
residual stress on the decay of high frequency boundary data
inside the composite domain. Understanding these phenomena
facilitates the design of tough composite structures for use in
aviation and infrastructure. The third project investigates the
dynamics of heterogeneous media using nonlocal models for elastic
interactions. The goal is to develop a multi-scale peridynamic
formulation for modeling deformation fields inside fiber
reinforced laminates. This formulation provides the mathematical
framework and associated numerical methods necessary to capture
the dynamic interactions between small and large length scales.
It is anticipated that the basic mathematical work and subsequent
numerical investigations can resolve new dynamic phenomena that
contribute to the delamination and failure of fiber reinforced
laminates.

The investigator develops new mathematical and computational
tools for the quantitative description of multi-scale phenomena
seen in composite structures. Composite materials are rapidly
becoming the materials of choice for structural applications.
This is due to their light weight and superior stiffness
properties. In order to accelerate their deployment an improved
understanding of their strength properties based upon their
microstructural geometry is required. This proposal focuses on
properties related to failure initiation. Failure is often
precipitated by extreme excursions of the local fields at the
level of the microgometry. The proposal consists of three
projects that make new connections between the excursions of
local deformation, strain, and stress fields as functions of
applied boundary loads and initial conditions. The projects are
chosen to address issues of practical interest that if solved can
accelerate the use of light weight composite materials for
applications in aviation and infrastructure.